Fully Nonlinear Elliptic and Parabolic Equations in Differential Geometry

NSF proposal DMS - 0204590

Principal Investigator: Bo Guan, University of Tennessee

Title: FULLY NONLINEAR ELLIPTIC AND PARABOLIC EQUATIONS
IN DIFFERENTIAL GEOMETRY

Abstract:

Fully nonlinear elliptic and parabolic equations arise from many problems
in differential geometry. In recent years these equations have attracted
a lot of attention and significant progresses have been made to understand
these equations and related geometric problems. In this project, the principal
investigator will continue his research in this direction. The problems to
be investigated in this project include isometric embeddings of metrics of
nonnegative curvature; questions about hypersurfaces of nonnegative constant
Gauss curvature with boundary in Euclidean space and more general Riemannian
manifolds, including existence, uniqueness and regularity; spacelike entire
graphs of constant Gauss curvature in Minkowski space; Minkowski type problems
of finding closed convex hypersurfaces of prescribed Weingarten curvatures;
regularity of solutions to degenerate Monge-Ampere equations in non-convex
domains; regularity of pluricomplex Green functions and existence of
holomorphic functions in Kahler manifolds; Hessian equations on Riemannian
manifolds and applications in geometric problems; hypersurfaces in hyperbolic
space of constant mean curvature (or Weingarten hypersurfaces) with prescribed
asymptotic boundary at infinity; and evolution of hypersurfaces by curvature
functions.

Equations arising from most of these problems are highly nonlinear. These
equations also model various phenomena in sciences and engineering. Solving
such equations heavily depends on establishing apriori estimates up to second
order derivatives. For many of the proposed problems in this project, these
estimates alone are often not enough to lead to existence of solutions; there
are other obstructions from geometry and analysis. These all impose
challenging questions. Research on these problems may also develop methods of
numerical approximations to the solutions that are useful in engineering and
science.